SGER: Novel Antifungal Materials and Surfaces

0507449
Langer

This proposed research delineates a number of novel approaches for grafting antifungal molecules to polymeric surfaces or incorporating those compounds within the polymeric matrix. The chemistry is challenging, as inappropriate modifications may abolish the fungicidal activity of the molecules, and their specific chemical properties make them hard to work with. The methodologies developed here will be applicable not only to the set of chemistries described here, but to surface modification in general. The potential uses are also broad, ranging from the prevention of fouling of industrial fermenters, sewage systems, and shipping hulls, to preventing fungal infections of catheters. The project follows a systematic approach whereby molecules are synthesized to predetermined specifications, tested in vitro against C. albicans, and then - if shown to be effective - tested in animals for efficacy and safety.